Problems Related to Ricci Curvature

Abstract

Award: DMS-0505733
Principal Investigator: Guofang Wei

This proposal is concerned with several problems centered around
Ricci curvature. Recent development shows the extraordinary power
of Ricci flow. It thus deserves studies from various viewpoints.
The principal investigator will study Ricci flow and comparison
geometry, stability of Ricci flow and compact Einstein manifolds.
The principal investigator will also study obstructions for
noncompact Einstein 4-manifolds and the Gromov-Hausdorff limits
of manifolds with Ricci curvature lower bound.

Geometric objects such as manifolds appear naturally in science
and engineering, as configuration spaces, as Einsten's model of
universe. Ricci curvature is a fundamental concept in geometry
as well as Einstein's general relativity. Einstein manifolds are
important both in mathematics and physics. They are good
candidates for canonical metrics on general Riemannian manifolds
and they are the vacuum solutions of Einstein's field equation
(with cosmological constant) in general relativity. General
relativity is the study of gravity, the one fundamental force
that should play a crucial role in understanding our
universe. Thus the fundamental research in these areas should not
only be important in its own right but also should have
implications in science and engineering.